Taylor Expansion of Eisenstein Series and Applications

The investigator will try to generalize the well-known Kronecker's
first limit formula to `holomorphic' Eisenstein series with characters
and study the tangent line of the Eisenstein series. He will then apply
the results to study the central derivative of automorphic L-functions.
In the second project, He, Kudla, and Rapoport will continue Kudla's
fundamental work on the the central derivative of incoherent Eisenstein
series. In particular, they will prove that the central derivative of
certain incoherent Eisenstein series is the generating function of zero
cycles on an arithmetic Shimura surface. He is also working with M. Stoll
on the arithmetic nature of a very nice genus two curve in relation with
the Birch and Swinnerton-Dyer conjecture. Finally, he is studying the
exterior cube automorphic L-series of GU(3, 3) in relation with the
associated Shimura variety.
Number theory has been one of the most amazing subjects to study for
more than two thousand years and will continue to be so. Even more so
is its surprising and beautiful applications to communications and
cryptography discovered during last 20 years. Automorphic forms and
Eisenstein series the investigator is working on is at the heart of
the modern number theory. Its advances would not only further our
understanding of the deep and beautiful subject of number theory but
also find its way to improve our daily life in the e-world.